Multidimensional Radiation Transport Methods with Application to Infrared Scanning

This research extends analysis to the cases of oblique exit, anisotropic scattering, and multilayer media and to apply it and some sophisticated inverse methods to the development of a flying-spot infrared scanner. The study develops further the F;iN method for multidimensional radiation transport in order to carry out calculations that approximate near-infrared transmission through slabs containing inclusions and exposed to pencil beams (diameter << lmm). These calculations are used in a formal design optimization framework in an effort to apply the well-known "flying-spot" principle, which reduces image-degrading scattered radiation, to transmitted-infrared imaging. The advantages of a flying-spot infrared scanner include: improved contrast because of scatter rejection; sensitivity to certain chemical as well as physical properties of tissues; effectively real-time output with no film processing; availability of digital output, facilitating contrast enhancement, multi-wavelength techniques, etc.; daylight operation; absence of risk, except for an easily-managed ophthalmological hazard; and modest cost and portability.